Numerical Control Structures for the Computation of Large Eigenvalue and Singular Value Problems

Among the components of a numerical program that have the greatest influence on accuracy are what can be called numerical control structures: convergence tests, stopping criteria, deflation criteria, and identification of problem instances that require special treatment. In order to guarantee high accuracy in computations with large matrices these control structures must be algebraically sound and perform well in finite precision arithmetic. This project will exploit the structure and geometry of a problem for the purpose of designing numerical control structures. The structure of the singular value decomposition will be used to determine the directions of errors and develop a perturbation theory; and the geometry of subspaces and angles between them will be used to design numerical control structures. The resulting perturbation theory and control structures are expected to lead to highly accurate implementations for the computation of eigenvectors of symmetric matrices and singular vectors by inverse iteration, for the computation of singular values by the (extended) Golub-Reinsch algorithm, and for the computation of eigenvalues by the QL algorithm. By design, the numerical control structures of the (extended) Golub- Reinsch algorithm are invariant under column scaling. Since recent error bounds for linear system solution, singular value decompositions, and eigendecompositions exhibit the same invariance, the numerical control structures will be employed to explain the significance and particular form of these error bounds. The goal is to produce more realistic assessments of problem conditioning and algorithm stability, which is especially important for highly accurate solution of large problems.